Planning of Computer Vision & Computer Engineering Laboratories

This grant supports planning activity to develop a continuing grant proposal for the Institutional Infrastructure-Minority Institutions program. The research areas of interest include computer vision, digital image processing, logic design, and microprocessors. Planning activities include a review of the curriculum, evaluation of laboratories and equipment, development of cooperative relationships with other universities, industry, and national laboratories, development of the minority graduate education pipeline, and finally the preparation and submission of a comprehensive five-year proposal //